Mesozoic Tectonics and Climate of Mongolian Sedimentary Basins: Insights from Six Key Stratigraphic Sections

9315941 Graham A joint Stanford-Mongolia team will: 1) study Mongolia's Mesozoic tectonics through comprehensive basin analysis studies; and 2) investigate Mesozoic climate as recorded in extensive accumulations of nonmarine Mesozoic strata, comparing results with published global climatic models of Mesozoic Asia.